NSF INSTRUMENTATION CY17 DEERING

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.

The Program recommends an award of for the purchase of the following:

1) Network Server Upgrade/Replacement $6,500
2) NI VB-8034 (2 ea) $16,000
3) Fiber Optic Training, Supplies and Tester $12,000
Indirect Costs $5,180
Total $39,680